Multi-Disciplinary Composites Manufacturing Laboratory

The aim of this proposal is to improve the quality of the laboratory courses involved in the Composites and Polymers Program at New Mexico State University. This multi-disciplinary program involves the chemistry, mechanical engineering, chemical engineering and engineering technology and is focused on the manufacture, processing, testing and design of fiber-reinforced polymeric composites. The improvement will be accomplished by incorporating modern instrumentation and equipment for three laboratory courses: Polymers and Composites Laboratory: Advanced Materials Technology Laboratory and the Composites Team Project Laboratory. Curriculum and course content developments are being accomplished with the aid of funding provided by industrial co-sponsors. The laboratory courses are strongly correlated to current industrial problems. A key feature of the program is an emphasis of the multi-disciplinary nature of and team approach to composite materials manufactured. These improvements will have a large impact on the students passing through the program, and can provide a model for other multi-disciplinary polymer and composite materials laboratory programs.